Affine Flag Varieties and Quantization in Postive Characteristic

The project consists of two parts: the first one is devoted to description
of constructible sheaves on homogeneous spaces (mostly of the loop groups)
in terms of coherent sheaves; the second one concerns with study of categories
of coherent sheaves by the method of quantization in positive characteristic.
The first one is a continuation of our previous work inspired by the (local
version of) "geometric Langlands duality" conjecture of Beilinson and Drinfeld.
The second one is suggested by our work (with Mirkovic and Rumynin) on
geometric approach (especially, use of D-modules) in modular representation
theory. In some situations the two constructions lead to the same
(t-)structures on the category of coherent sheaves.
The results of the project are expected to yield a better understanding of
the nature of this intriguing coincidence.

From a formal point of view representation theory is a branch of algebra.
However, many of its famous advances were due to discovery of connections to
other disciplines such as differential or algebraic geometry, where geometric
intuition can be applied. In a previous work we developed such geometric
methods for a branch of representation theory called modular representation
theory (where the role of numbers is played by residues of integers modulo a
fixed prime number). One of the goals of the present project is to "repay
the debt of algebra to geometry" by applying ideas stemming from this
work to questions in algebraic geometry. The geometric structures arising from
such applications also appear in the study of some topological objects related
to loop groups (whose definition is similar in spirit to constructions of
physists' String Theory). This miraculous coincidence has strong technical
consequences; we hope to get a better understanding of its nature as a result
of the work on the project.